Phospholipids Store Choline for Acetylcholine Synthesis

These studies are designed to explore a fundamental biochemical property of cholinergic neurons, nerve cells that synthesize and release acetylcholine as their neurotransmitter. These neurons are unique among cells since they alone utilize choline not only as a precursor of phospholipids ıphosphatidylcholine, sphingomyelin, plasmalogens!, the major structural components of all biological membranes, but also as a precursor of acetylcholine. This metabolic property of cholinergic neurons led to a recently verified hypothesis (by studies of a purely cholinergic population of human neuroblastoma cells, LA-N-2) that choline stored in membranes as a component of phospholipids is available for acetylcholine synthesis. The overall goal of this study is to explore the metabolic mechanisms that regulate the reversible fluxes of choline between the membrane phosphatidylcholine and acetylcholine in LA-N-2 cells. The predominant pathway of phosphatidylcholine metabolism and contribution of phosphatidylcholine in providing choline for acetylcholine synthesis will be determined. The effects on choline transfer from phosphatidylcholine to acetylcholine of 1. neuronal firing, and 2. extracellular choline concentration, will be characterized. Specific "pools" of phosphatidylcholine (defined by pathway of synthesis, or subcellular localization) that might preferentially be utilized to provide choline for acetylcholine synthesis will be identified. The studies will be performed using radiolabeled precursors of phosphatidylcholine and acetylcholine and tracing the metabolic fate of the labeled precursors by high performance liquid chromatography. The results of this study will improve the understanding of the metabolic processes that regulate neurotransmission as well as those that regulate the structure and functions of biological membranes, allowing for the formulation of theoretical models of neuronal function and for medical applications in diseases characterized by impaired cholinergic neurotransmission.